Upgrade of a 600 MHz NMR Spectrometer

The Department of Chemistry at the University of Michigan will upgrade a 600 MHz nuclear magnetic resonance (NMR) spectrometer and equip it with solid state NMR capabilities with support from the Chemistry Research Instrumentation and Facilities: Multi User (CRIF:MU) program. The instrument will be employed in several biophysical and biomaterials and synthetic chemistry projects requiring high field SSNMR including: The high field SSNMR will be used in studies of polymorphic organic compounds, nanomaterials, reactive intermediates, interactions of small molecules with phospholipid bilayers, molecular organization of bone materials, molecular dynamics of proteins in nanocrystals and fuel cell membranes.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry, organometallic chemistry, biophysical chemistry and materials chemistry.